Studies of Quantum Liquids and Solids

Research is proposed on the possible surface superfluidity of solid hydrogen, the properties of liquid helium under negative pressure, the dendritic growth of solid helium, and magnetic polarons in solid 3He.